Photoperiodic and Neuroendocrine Regulation of Brain Plasticity

Contrary to dogma, the adult brain exhibits considerable plasticity. New
cells which are born in particular regions migrate within the forebrain and
differentiate into neurons. The investigator has found that the birth, survival, and/or
differentiation of such cells in adult brains is influenced by both
environmental and hormonal factors. His work will clarify the cellular and
physiological mechanisms which underlie the regulation of new cell
incorporation and address its functional significance.
Dr. Bittman will first determine whether removal of the testes eliminates the
influence of daylength on the number of newborn cells in specific brain
regions, and whether fluctuations in androgen secretion are necessary for
daylength to exert its effects. This work will establish whether daylength
and androgen interact to regulate this phenomenon. The investigator will next establish
whether the influences of the gonads and photoperiod on the incorporation
of new neurons in adulthood are attributable to regulation of cell birth,
programmed cell death, migration of newborn cells, or some combination of
these events. Finally, he will explore the possible functional role of
neurons born in adulthood. This will be accomplished by assessing the
activation of newborn cells in the processing of reproductively relevant
olfactory stimuli.
These experiments will elucidate environmental regulation of brain
plasticity and explore basic mechanisms regulating cell birth, migration,
and death which may prove useful in treatment of damaged or diseased
nervous systems.